Multiview Storage Systems

This project proposes to build a Multi-View Storage System, MVSS. Similar to a Multi-View Database System, MVSS allows multiple views of the same file on the physical disk to be generated dynamically.
To support multiple views, devices will be "multiported". Different views of a file can be customized to provide different types of service at a multiported device. MVSS separates the deployment of services from file system implementations and thus allows services to be performed at various levels of the
storage system. Multiple views of the file are provided to the user through file system namespace.
Through these views, MVSS provides a flexible and extensible way for supporting a wide range of services including device-level enhancements.

In this project, we will build an experimental testbed incorporating these ideas and plan to evaluate them through real applications. Database Select operations, MPEG filtering for QOS, sorting and a
number of other applications will be used to drive the prototype system.